Symposium on Advances in Aquatic Chemistry and Research Needs Applicable to Environmental Engineering Processes and Systems, April 8 and 9, 1992

This is an award to support conduct of a Symposium on the current status and emerging issues in aquatic chemistry that are of significance in environmental engineering design and practice. This symposium is planned to be conducted in associative relationship with a national meeting of the American Chemical Society in the spring of 1992. Major topics for the symposium, scheduled for April 8 and 9, 1992 include surface phenomena that affect chemical reactions in aquatic systems, aspects of earth contact, biological processes, oxidation-reduction and photocatalyzed reactions in dilute aqueous solutions that affect engineering approaches to management of water quality. Results of this Symposium are expected to provide guidance to the Environmental and Ocean Systems Program in planning and conduct of research in aquatic chemistry applicable to the dispersion, diffusion and interactions of chemical pollutants in the environment.